AGU Chapman Conference on Examining Ecohydological Feedbacks of Landscape Change along Elevation Gradients in Semiarid Regions, 5-9 October 2009

Chapman Conference on Examining Ecohydrological Feedbacks of Landscape Change along Elevation
Gradients in Semiarid Regions, October 5-9, 2009, Sun Valley, Idaho, USA
Chapman Conferences are topical meetings sponsored by the American Geophysical Union (AGU)
and are designed to promote opportunities not normally available through larger meetings.
The AGU Chapman Conference on Examining Ecohydrological Feedbacks of Landscape Change along
Elevation Gradients in Semiarid Regions takes place 5-9 October 2009, in Sun Valley, Idaho.
Ecohyrdology is an emerging and rapidly evolving science. Several books on this topic have
been published since 2002, in addition to special features in journals. This Chapman Conference
will examine the ecohydrological changes taking place in semiarid landscapes, across elevation
and precipitation gradients. The conference goal is to help scientists from different disciplinary
backgrounds and land managers better understand and address the substantial changes occurring
in semiarid landscapes. This conference builds on the success of a previous Chapman Conference,
Ecohydrology of Semiarid Environments, held in 2002.
It is anticipated that approximately 100 participants will attend this conference, with a
mix of 20% by invitation, ~80% contributed, and about 25% will be young scientists and students.